CAREER: Atomically Precise Proton-Coupled Electron Transfer at Solid-Liquid Interfaces

Professor Hyunho Noh of the University of Oklahoma is studying how hydrogen atoms are transferred between solid materials that act as catalysts and liquid reaction mixtures. These reactions are widely used in the manufacturing of fuels and commodity chemicals, but scientists still do not fully understand how small changes in catalyst structure affect their performance. The project will use highly tunable and well-defined materials as model systems to uncover clear rules that link structure to performance. These findings enable the design of low-cost catalysts made from abundant materials for next-generation technologies in the advanced manufacturing sectors. In parallel, the project will provide hands-on training for undergraduate and graduate students in Oklahoma through new laboratory-based courses, a summer bootcamp, and research opportunities. The anticipated outcomes include widely applicable guidelines on designing and improving catalysts, training the next generation of scientists and engineers, and expanding participation in STEM fields critical to national energy security and economic priorities.

Professor Hyunho Noh of the University of Oklahoma is studying structure-thermodynamics-activity relationships of proton-coupled electron transfer (PCET) reactions at the interface between Ti-oxo sites and a liquid reaction medium. Interfacial PCET reactions with equal numbers of protons and electrons are net H-atom transfer (HAT) reactions and are fundamental to transformations in chemical manufacturing sectors; however, the precise correlation between active site structure and reaction thermodynamics/kinetics remains unclear. By leveraging the structural precision of metal-organic frameworks (MOFs), the project will establish quantitative, atomically precise relationships between the MOF-embedded Ti-oxo site structure, H-atom binding thermodynamics, and reaction kinetics by systematically varying the organic linker electronics and the node nuclearity. Electrochemical methods, including open-circuit potential measurements, will be employed to determine O-H bond dissociation free energies, while spectroscopic techniques will quantify HAT rates. Integration of relationships between reaction rates and thermodynamic driving forces with computational modeling will establish Bell-Evans-Polanyi and volcano-type plots for PCET reactions at atomically precise active sites. The anticipated outcomes include new design principles for controlling PCET at solid-liquid interfaces, generalizable strategies for tuning catalytic performance through atomically precise structure, and mechanistic insights with broad implications for catalysis and chemical manufacturing.